Effects of Galactic Chemical Evolution on Exoplanet Properties

Over time, the chemical composition of the Galaxy evolves as nucleosynthesis processes occur in stars and their remnants. Beginning with the primordial mixture of elements, these different processes enrich the galaxy with new chemical elements that compose the planets that form at any point in time. In a project at the University of Nevada Las Vegas (UNLV), a researcher will model the properties of planets throughout the history of the Galaxy. The research will have important implications for our understanding of the formation and composition of rocky planets throughout time. The results of the simulations will provide insights into the evolution of planet properties in the galaxy, the possible development of habitable worlds and life, and will provide testable predictions for exoplanet observations. As part of the project, the researcher will bolster their existing outreach programs that aim to improve the scientific literacy of the public, inspire and recruit future STEM students, and improve ties between the community and the university.

The results of this project will have important implications for our understanding of the formation and composition of rocky planets throughout galactic history. These issues have an effect on key geophysical processes, planetary structure, and habitability. Building on previous NSF-supported research, the proposed models will include new prescriptions for stellar initial mass functions and appropriate timescales for element synthesis depending on the production site, chemical mixing, time-dependence of planet properties, differential enrichment of planetary material, and the rise of conditions that may be necessary for life. These modeling efforts will provide a more robust theoretical framework that can be used to study the evolution and variation of different properties of planets, including their bulk density and chemical composition, the presence of absence of cores, the fraction of their mass in the core and mantle, the composition of the core and mantle, their capacity to develop a magnetic field, their propensity to have volcanism and plate tectonics, the potential composition of outgassing atmospheric material, and their capacity to develop and sustain life. This work will also motivate new astronomical observations to further constrain the properties of planets around known systems and provide a more complete picture of the outcomes of the planet formation process in the Galaxy.